Conference Proposal - Mineral Bioprocessing

The objective of this conference is to explore the role of biotechnology in minerals and fossil-fuels processing, and to determine the direction of future research in mineral bioprocessing. It is planned to have seven different technical sessions covering all the major and targeted areas. Anticipated participants will be from academia, government, and industry. At the end of the conference, proceedings covering all the technical presentations, panel discussions, and future research directions in minerals and fossil-fuels bioprocessing will be published.